U.S.-Japan Seminar: Intense Multiphase Interactions/ June 9-13, 1995/Santa Barbara, California

9417265 Theofanous This award supports the participation of 10 U.S. scientists in a U.S.- Japan seminar on Intense Multiphase Interactions, to be held in Santa Barbara, California from June 9-13, 1995. The co-organizers are Dr. Theofanis Theofanous of the University of California at Santa Barbara and Professor Mamoru Akiyama of the University of Tokyo. This seminar will address a single, very special, phenomenon known as Steam (or Vapor) Explosion. The phenomenon is of great interest to several diverse fields including volcanology, industrial safety, and in the production of specialty materials. Progress in the understanding of this phenomena has been slow but definite, due primarily to major advances in computing power and experimental techniques. This seminar will also enhance progress in this area. The U.S. participants provide a broad cross section of expertise and geographical representation in the area of heat transfer and fluid mechanics, and were selected on the basis of being the most active researchers in the U.S. Therefore, this proposal fulfills the objectives of the Program in its exchange and transfer of scientific knowledge through an international collaboration. ***